Rapid: PBS NewsHour coverage of non-medical, non-clinical care research around COVID-19

This RAPID was submitted in response to the NSF Dear Colleague letter related to the COVID-19 pandemic. This award is made by the AISL program in the Division of Research on Learning, using funds from the Coronavirus Aid, Relief, and Economic Security (CARES) Act. The public must be made aware – in a clear, responsible way – about the role of science to help bring this pandemic under control and prevent future outbreaks. This project will allow the NewsHour to go beyond their daily reporting of the medical information about the pandemic, to inform the public about the difference scientific research/ research conducted by scientists and medical professionals can make in attacking such a dire threat. The PBS NewsHour has the capability to quickly mobilize its science journalists and national distribution infrastructure to produce at least six broadcast segments and additional digital materials reporting on this on-going scientific work. They will interview scientists, researchers and experts in genomic analysis, computer tracking, vaccine production, and social epidemiology showing what they are doing to test, treat, track and stop the spread of COVID-19, to create vaccines that may prevent further transmission, and to measure the social impact of the disease. These segments will be broadcast nationwide on local PBS stations and distributed on their website, YouTube, and social media channels. Viewership of the NewsHour is extensive reaching 2.5 million people nightly via broadcast and almost 33 million YouTube views per quarter. During a recent quarter, they reached 72.6 million on Facebook and garnered 86.8 million Twitter impressions.

The research team, Knology, will conduct a study to assess 1) where US adults are primarily getting information about COVID-19; 2) their perception of personal and public responsibility; 3) behaviors they have taken and/or plan to take, and when; 4) their social values. Knology will develop a survey instrument with adopted items and modules used in prior collaborations to develop a baseline understanding of the relationship between news consumption and attitudes about COVID-19 risk. The survey will be hosted using Qualtrics. Survey data will be gathered from a representative sample of US adults (N = 1000) recruited using the online software system, Prolific. A recent PBS NewsHour/NPR/Marist poll will be used as a baseline. Once potentially identifying information like demographics are aggregated, these formative data and topline results will be shared openly through the Knology website to support other researchers and journalists.